Young Scholars Project in Nuclear Science and Technology

The North Carolina State University at Raleigh will initiate a four- week, residential, Young Scholars project in Physics for 24 students in grades 11-12. The residential component of this project consists of: 1) two weeks of structured lectures, demonstrations, and hands-on experiments on the fundamentals of nuclear physics, nuclear radiation, fission and fusion, nuclear energy, and the use of nuclear techniques in science and technology; and 2) two weeks of participation in research as an apprentice to a researcher in tomography, nuclear spectrometry using a Van de Graaff accelerator, power reactor control, plasma physics, neutron activation analysis, or health physics. The goal: to provide a stimulating experience that will motivate the participants toward a career in science or engineering.